Structure of Physically Adsorbed Layers

Physically adsorbed monolayers on crystal surfaces provide experimental realizations of two-dimensional condensed matter. Low-energy electron diffraction measurements will be used to investigate the structure, phase transitions, and adsorption- desorption kinetics of physically adsorbed monolayers on graphite and magnesium oxide. A better understanding of these condensed phases of two-dimensional matter can help improve the understanding of other types of condensed matter.